Teaching Microcomputer-Based Laboratory Physics Courses to Remote Sites Using Two-Way Video and Audio

This project is designed to remove the obstacles that discourage capable students from continuing to study physics. It is using microcomputer-based laboratories (MBL) as a platform to provide a more effective learning environment to aid all students, even students who are science deficient or who have never been provided the opportunity to study physics. These MBL experiments and activities cover the majority of the topics taught in a traditional two-semester introductory physics course. The classroom is completely mobile to allow instruction in a variety of settings. It uses a file server network system, laptop computers, Universal Laboratory Interfaces, and a variety of interfacing probes. The project is allowing increased access to physics education for students in rural areas using an interactive television (ITV) system with two-way video and audio.